Support for Graduate Student Participation in Various Workshops at Robotics: Science and Systems 2006

The workshops supported by NSF as part of the Robotics: Science and Systems conference will focus on human-oriented robotics including rehabilitation, exoskeleton and prosthetics, human-robot interaction, robots manipulating in human environments, and socially assistive robotics. The breadth of human-oriented robotics is large, and is becoming more important for the viable transfer of robot technology to real human applications as well as understanding the science of the interaction between the two. The workshops will bring together a large number of researchers in these related fields. The NSF support will enable students to attend these workshops, learning issues in these growing fields and training them to be researchers. Robotics: Science and Systems is a new conference that brings together researchers working on algorithmic or mathematical foundations of robotics, robotics applications, and analysis of robotic systems.